Regulation of Ina in Escherichia Coli (Biology)

A novel pH-dependent locus ina, mapping at 48.5 min, has been isolated through lacZ operon fusions in Escherichia coli. This locus exhibits pH-dependent induction by membrane-permeable weak acids and by protonophores, but not by external acidification alone. These data could be explained by the detection of internal acidification by ina. The ina fusions will be cloned and sequenced, and the sequence analyzed for promoters and regulatory sites. Acid-sensitivity of the regulatory DNA will be tested by in vitro transcription of the cloned fusions. The possible regulatory role of H-palindromes, which produce H-form DNA at low pH, will be investigated. Regulator genes for ina will be isolated, by screening Tn10 insertions and ethylmethanesulfonate mutants for isolates which are either constitutive or uninducible. Interactive activities include teaching a course in molecular biology, presenting a public lecture on the topic of women and science, and forming a support group for young scientists attempting to balance competitive research careers with family life. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.